US-Egypt Cooperative Research: Environmental and Industrial Biotechnology and Product Transfer

9713617 Munnecke Description: This award is for support of a cooperative project by Dr. Douglas M. Munnecke, Founder and President, Environmental BioTechnologies, Inc. in San Carlos, CA, and Dr. A.M. Azzam, Genetic Engineering and Biotechnology Research Institute (GEBRI) in Mubarak City for Scientific Research in Alexandria, Egypt. The objective of this joint project is to investigate the applications of advanced biotechnology discoveries in various industries, including food, agricultural and environmental monitoring and control industries, and the potential for US-Egypt industrial production cooperation. The two sides intend to: define the market needs and size for selected industrial bioproducts and bioprocess; identify available American products and technology for importing into Egypt; and finally initiate contacts between American and Egyptian biotechnology companies for possible joint activities. Scope: This project will involve a US scientist with extensive experience in developing applications for discoveries and advanced research results in the area of biotechnology, in various fields in the United States. On the Egyptian side, the cooperating scientist is an experienced chemical engineering researcher who is now in charge of a major government research laboratory (GEBRI) with a mission to make possible the utilization of the rapid advances and discoveries in the field of biotechnology. The work in this project will seek to utilize the scientific advances made in Egypt and in the US in biotechnology for economic development in Egypt and in other Middle East countries. The results can have a major impact on the economic development and also on the environmental quality, and general health services in these countries and on their technical cooperation with the United States. Most of the work will be done in Egypt with support from the US scientist, with the rest to be done in the United States. This proposal meets INT objective of supporting US- foreign collaboration in areas of mutual benefit. This project is being supported under the US-Egypt Joint Fund Program, which provides grants to scientists and engineers in both countries to carry out these cooperative activities. ***